A Qualitative and Quantitative Study of Self-Adjoint and Non-Self-Adjoint Sturm-Liouville Problems

Zettl

Technical description. In a series of papers over the last five years or so,
the three authors of this proposal, together with a number of collaborators,
embarked on a systematic study of the dependence of the spectrum of self-adjoint
Sturm-Liouville problems on the problem. This project is a natural
continuation of the above work. It is planned to enlarge the class of self-adjoint
problems covered (e.g. by including the so called "left-definite" problems) and,
especially, extend the above work to the non-self-adjoint case. The latter case is
formidable: there is no general theory that can be compared with the well developed
theory for the self-adjoint case. A new approach introduced by the authors for
the self-adjoint case, using tools from algebraic geometry, has yielded considerable
insight for this case and is expected to do so also for the non-self-adjoint case.

General description. Sturm-Liouville problems have a celebrated history dating back
to the seminal papers of Sturm and Liouville in 1836-37. Thousands of papers have
been written on these problems by mathematicians and by scientists, and engineers.
Yet the field is still intensely active today with dozens of papers published every year.
These problems have a wide range of applications in pure mathematics, applied
mathematics, quantum mechanics, the sciences and engineering. For example, they
can be used to study the spectrum of the hydrogen atom, eddies in the atmosphere,
neutron transport, etc. etc. The main purpose of this project is to study, both
qualitatively and quantitatively, some major and difficult classes of such problems
about which little is known.